"Conference on Historical Records, Environmental Impact and Remediation of Contaminated Aquatic Sediments, June 14-16, 1993."

This is an award for support of a conference to address the relationship between pollutant presence and concentration in aquatic sediments and conditions that led to their presence and existing concentrations. Topics to be covered include methods for evaluating rates of pollutant deposition, their incorporation into sediments, the role of sedimentation and mixing processes in determining pollutant dispersion; pollutant interactions influenced by chemical, physical and biological processes; and the role of contaminated sediments in affecting the quality of overlying surface water. The conference will be held in Milwaukee, Wisconsin from June 14-16, 1993. Planned co-sponsors include the International Association on Water Pollution Research and Control, the U.S. Environmental Protection Agency, the Great Lakes National Program Office, and the International Association for Sediment-Water Science. Sedimentary deposits of particle- associated pollutants can provide valuable information for use in devising and validating environmental models. Deposits of lead, zinc, cadmium, polychlorinated biphenyls and polycyclic aromatic hydrocarbons can provide insights into effects of acid deposition on water quality, and evidence of changes in global climate that may be influenced by population growth and associated agricultural and industrial activities. The environmental models may be utilized to predict changes for guidance in engineering design of responsive systems.